Metastable Ultrathin Layered Magnetic Structures

This project addresses the growth and processing of metastable ultrathin epitaxial films and layered structures of transition metals. Stuctural metastability is achieved by epitaxial growth on selected single-crystal substrates, and on designed buffer-layer films created by epitaxial growth of metals on semiconductors. The resesarch employs low-energy electron diffraction (LEED), angle resolved photoelectron diffraction, photoelectron holography with synchrotron radiation. The magnetic properties of the films will be characterized by in-situ magnetoresistance measurements and by the surface magnetooptical Kerr effect. The research will address fundamental aspects of the photoelectron diffraction phenomena as well as practical applications of these techniques to determine the structures of the films.